Constitutive Relations of Solute Transport and Transformation at the Darcy Scale

This project is part of a longer-term research effort to promote a firmer understanding of the factors that control the transport and chemical fate of pollutants, substrates, and electron acceptors at the Darcy scale, in practice the smallest scale for modeling the transport and chemical fate of solutes in porous media. At the Darcy scale, a complex medium consisting of pores, a solid matrix with biofilm, etc. is replaced by a homogenized medium characterized by constitutive relations and parameters. The methodology of the project will be to model flow, transport, and chemical transformations at the pore scale and then to scale up in order to derive constitutive equations and parameters. The constitutive equations and parameters to be obtained will thus be consistent with the fundamental physico-chemical principles as well as the heterogeneity of the medium. The fundamental objective is to derive relations among quantities defined and measurable at the Darcy scale.